Conference Support: First International Forum on Applica- tions of Neural Networks to Power Systems held in Seattle, WA on July 24-25, 1991

This project provides support for a workshop on the topic of artificial neural networks and their application in electric power engineering planned for July 24-25, 1991 at the University of Washington, Seattle, WA. The workshop will be the first international meeting of its kind devoted to power engineering applications of this novel technology. A special emphasis is to be given for participation from Pacific Rim countries -- and the second symposium, which will be a follow-up to the present workshop, is expected to be held in Japan in 1993.